Functional Organization of the RecA and RecBCD Enzymes

The long term goal of this research is to understand the functional organization and structural dynamics of the RecA and RecBCD enzymes in order to determine how their many activities are coordinated in carrying out the overall process of genetic recombination. The regions of these enzymes that are involved in particular functions, e.g. DNA binding, ATP binding and hydrolysis, and oligomeric contacts will be identified. Once regions of the proteins have been identified as critical for a given function, a variety of mutagenic techniques will be used, combined with appropriate genetic selections and screens, to detail the structural requirements for that function. Resulting mutant proteins will also be analyzed for their ability to undergo ligand-induced conformational changes, a feature of many multifunctional enzymes which underlies their ability to coordinate various catalytic activities. Further genetic analysis of the relationship between protein structure and function will be performed by using a number of the recombination deficient mutant proteins obtained in this study to select androgenic second site revertants. The analyses of RecA and RecBCD will serve to provide both a more detailed molecular description of genetic recombination, as well as further insights into the mechanisms by which multifunctional, oligomeric enzymes organize a variety of activities into an ordered enzymatic process.